The 24th International Workshop on Languages and Compilers for Parallel Computing (LCPC 2011)

This proposal requests NSF support to broaden participation in the International Workshop on Languages and Compilers for Parallel Computing. This workshop covers all aspects of languages, compiler techniques, run-time environments, and architectures for parallel and high-performance computing.
The organizers asked for financial support in the amount of $2,500 to offset the registration fees for US-based students.